Neuronal Plasticity Following Deafferentation

The long term objective of this research is to understand the mechanisms underlying cortical plasticity in adult animals. The project will examine the details of reorganization of the forepaw representation in primary somatosensory (SI) cortex of cats using somatic stimulation and extracellular recording techniques. It will provide a quantitative description of receptive fields of the forepaw representation of SI cortex in terms of postsynaptic potentials using the intracellular recording technique and mechanical stimulation. Subthreshold changes in the receptive field organization of SI neurons following reversible and irreversible deafferentation along with the morphology of physiologically identified SI neurons in normal and reorganized cortex following intracellular injection of HRP will be studied. The results from this project will be of importance in refining models of neocortical plasticity in adult animals.